Millirobotics for Tissue Manipulation in Minimally Invasive Telesurgery

The research focuses on developing millimeter-scale robotic tools with force feedback and tele-taction for performing tissue manipulation for minimally invasive remote surgery. Key elements of the project are: (1) prototyping of millimeter-scale robotic hands for teleoperation in minimally invasive procedures; (2) modeling and manipulation of compliant tissue; and (3) millimeter scale teletaction. The research program will be carried out on a telesurgical workstation incorporating millimeter-scale robots equipped with force and tactile sensing, larger positioning robots for holding the instruments, and a surgical interface including a bi-manual surgical master with tactile displays and force feedback . For the purposes of training and procedure rehearsal, the surgeon will be able to try out his/her actions on the surgical master using the simulator before implementation. In the first year of the project, surgical procedures like blunt dissection, catheterization, suturing and anastomosis will be explored. In the second year the system prototypes will be tested on procedures such as dissection of the peritoneum and suturing of ex-vivo stomach tissue. In the third year, a complex procedure, known as Nissen undoplication to control stomach reflux, will be tried as proof of the entire system.